Organizational Strategies for Processing Mail: An Information Processing Perspective on Decision Making

This is a research opportunity for women planning award to develop a research proposal on the impact of computer mediated communication technologies on information processing and decision making in organizations. The planning grant will support a pilot study which will serve as the basis for a more comprehensive longitudinal research effort in a field setting.